The Late Prehistoric Political Economy of the Calchagui Valley, Argentina

Dr. D'Altroy and colleagues have conducted excavations at archaeological sites located in the Upper Mantaro Valley in the highlands of Peru. In particular, they focussed on two cultural periods: Wanka II which dates from ca. A.D. 1350-1460 and Wanka III, from 1460-1553. During the earlier phase, the Wanka societies were organized into warring chiefdoms with large communities serving as population and political centers. During Wanka III times, however, these groups were pacified and incorporated into the Inka empire. Settlements were shifted to lower unfortified locations, and presumably, political organization was altered. A new second phase of field research is based on these prior results. Excavation will focus on both Wanka II and III sites to collect data on the transformations that occurred in the political economy of the Wanka region as a result of imperial occupation. Sites will include one indigenous Wanka center each from Wanka II and III, an Inka provincial capital, and a subsidiary Inka settlement. The excavations will focus on public and elite architecture. Analyses of recovered materials - plant remains, animal bones, ceramics, lithics, metals, and textiles - will provide information on imperial administration, the subsistence support for elite institutions, and the political/ceremonial relations between conqueror and conquered. This research is important because it will provide insight into how large political organizations are formed and how powerful urban elites relate to rural subjects. This distinction exists today and characterizes many nations in the developing world. The political and economic problems faced by many nations, such as the Philippines, are influenced by just such factors. Archaeology is useful in such a context because it provides an excellent long term perspective.